Two-Dimensional Velocity And Size Measurements of Engine Sprays And Two-Phase Flows

Abstract:

A two-dimensional phase Doppler particle analyzer is required. This is used in an investigation of fuel sprays and air mixing in lean direct-injection four-stroke spark-ignition engines; a study of fuel/air mixing in a cold-start port-injected spark-ignition engine; the development of an understanding of how oxygenates blended in diesel fuel impact in-cylinder spray combustion characteristics and pollutant formation; experiments on and modeling of port injection processes including spray/wall impingement, backflow, microexplosion, and particle dispersion; and an experimental study of particle dispersion in the turbulent wake of a cylinder.